Engineering Research Equipment Grant: Request for Equipmentto Collect Polarized Light Intensity, Scattered from Medium,Simultaneously at Three Points

This equipment grant is for instrumentation to measure thermal radiation. In particular, the equipment will be used to study the influence of anisotropic scattering on the back-scattered, side-scattered, and transmitted radiation from a medium whose optical properties range from a small to a moderate optical thickness. The polarization of the three scattered beams will also be measured.